Mathematical Sciences: Linear and Non-Linear Waves

This project will investigate stability and equilibria in plasma with collisions, instabilities and scattering properties of bound states of scalar wave equations, scattering frequencies of time periodic systems, and regularity of linear and nonlinear dispersive waves. The fundamental mathematical problems focus on global existence for certain initial value problems. These studies in linear and nonlinear waves find applications in fields such as astrophysics and thermonuclear fusion.